Presidential Young Investigator Award: Dynamics of Electro- Mechanical Devices

This Presidential Young Investigator Award is concerned with the investigation of vibration and noise reduction in high performance electromechanical devices. The research involves the calculation and measurement of structural response to magnetic and electromagnetic fields leading to the design of compact, high output and high stability devices. Voice coil actuators, stepper motors, and direct current brushless motors with high energy magnets are also of primary interest.